Mathematical Sciences: Conference on Nonlinear Phenomena in Fluid Mechanics

This project will support the Conference on Nonlinear Phenomena in Fluid Mechanics to be held April 13-15, 1989 at Pennsylvania State University. The conference will be under the direction of Professor Jerry Bona of Penn State. It will focus on modern developments in the field of fluid mechanics with the goal of presenting a balanced view of current mathematical, theoretical, and experimental trends in this subject. Lectures will be presented by A. Acrivos, D. Benney, J. Hammack, J.-L. Lions, M. Longuet-Higgins, J.B. McLeod, J.W. Miles, T. Mullin, P. Saffman, J.T. Stuart, R. Temam, and J.F. Toland. The proceedings of this conference will be published and support for participants will be available.